Non-mean-field random matrices and disordered systems

Disorder can determine whether electrons, waves, and other excitations remain trapped in a small region or spread throughout an entire material. The transition between these behaviors, known as localization and delocalization, underlies phenomena ranging from electrical conduction and insulation to quantum chaos, yet fundamental questions about when such transitions occur remain unresolved. This project will develop a rigorous and broadly applicable mathematical theory for predicting these transitions in complex systems with short-range or spatially structured interactions. Building on recent advances by the PI and collaborators on the delocalization conjecture for random band matrices, the research will connect several influential models of disordered quantum systems within a common framework and identify the parameters that govern transport behavior. The project will also translate its graphical methods into a new course, student research projects, and open-source computational tools, expanding access to modern ideas at the intersection of probability, physics, and computation.

Technically, the project investigates non-mean-field random matrices through resolvent analysis, local eigenvalue statistics, and eigenvector localization lengths. Its central objective is to prove the delocalized regime of a universal coupling-strength conjecture for general block random Schrodinger operators, including random band matrices, block Anderson and Wegner orbital models, and operators with long-range variance profiles. An energy-dependent parameter Gamma_E, constructed from spatial moments of interblock Hilbert-Schmidt couplings, the block scale, and the density of states, is conjectured to determine the localization length in every dimension. The project will establish polynomial-scale delocalization bounds when Gamma_E is large, extend existing results from bulk energies to the full spectrum, accommodate more general entry distributions and variance profiles, and investigate dynamical diffusion and universality of local eigenvalue statistics. The analysis will further develop the resolvent loop-hierarchy and graphical expansion methods introduced by the PI and collaborators, including multi-spectral-parameter estimates required for dynamical questions. These tools will also be adapted to partially random banded Hamiltonians in quantum chaos to locate eigenvector localization-delocalization and Poisson-GOE spectral transitions as the coupling strength varies.